CEDAR: Develop a Circle toLine Fabry-Perot Interferometer

This proposal is to develop a new type of Fabry-Perot interferometer based on an existing instruments, but modified to provide greatly enhanced sensitivity. The new technique called the Circle to LIne Interferometer Optical System (CLIO) developed at the University of Michigan permits the use of conventional Charge Coupled Device (CCD) solid state detectors without the read noise penalty that has impeded their use. The CLIO technique provides a large advantage in quantum efficiency and offers the opportunity to operate the interferometers with multiple orders, both of which enhance instrument sensitivity. It is anticipated that after development of this instrument at the University of Michigan, the technology would be used to study the dynamic nature of small scale waves in the Mesosphere. This technology would also be transferred to other CEDAR ground based facilities to improve the sensitivity of the global interferometer network.